Using Dynamics and Observations to Assess and Understand Sea Level Rise and Low Frequency Currents on Eastern Ocean Boundaries

9415644 Clarke This project consists of an analysis of hydrographic data and winds to study the long-term variability and dynamics of eastern boundary oceanic regions using a linear model. The study focuses on three major components: (1) an estimation of dynamic height along the eastern boundary of the Atlantic back to the early part of this century and relate the resulting variability to heating/global warming and changes in the strength of the equatorial and coastal winds; (2) use the linear model to analyze the coastal ENSO flow; and, (3) using the same linear model, develop an understanding of the intraseasonal flows when bottom friction and slope bottom topography are taken into account. ***